SBER: Inactivation of Airborne Microorganisms Using Electrical Fields: A Feasibility Study

0212007 Mainelis The control of airborne microorganisms that are capable of causing serious health problems or even death has become a serious concern since the recent anthrax spore episode in the United States. Electric fields have been used to kill various bacteria, yeasts and spores in liquids, but have not been used to inactivate airborne microorganisms. This research will result in the development of a laboratory test facility for exposure and determination of the inactivation efficiency of airborne microorganisms by electrical fields of different magnitudes and polarity for different periods of time.
Three different microorganisms will be used, one of which is a surrogate for anthrax spores i.e. Bacillus subtilis var. niger.